Homological Mirror Symmetry and applications

Homological Mirror Symmetry (HMS) was initially introduced by Kontsevich
as a duality between Morse theory and de Rham theory.
After many wonderful physics papers at the beginning (Vafa, Hori,
Kapustin) many algebraic and symplectic Geometers have turned to the
subject. Rigorous mathematical proofs of HMS were given in several cases by D.
Auroux, L. Katzarkov, P.Seidel, M. Kontsevich, D. Orlov,
Y. Soibelman, K. Ueda. Bondal, Ruan, Abuzaid.

This research will concentrate on some striking applications of HMS to birational geometry, Gromov -Witten theory, Symplectic Geometry as well as some rather promising connections with Hodge theory. The expected results will help streamline
classical ideas of algebraic geometry in the new light of
collaboration between Mathematicians and String Theorists.